Acoustic Waves in Thin Piezoelectric Plates: Theory and Applications

The aim of this project is to carry out detailed theoretical and experimental investigation of
acoustic waves propagating in thin piezoelectric plates. By thin we mean plates whose thickness h is much
less than the acoustic wavelength . The main tasks that will be undertaken during the course of this
project include: (1) Theoretical analysis of plate wave propagation in a number of useful materials such as
quartz, lithium niobate, lithium tantalate, potassium niobate, langasite, langatate, etc. The aim of this
analysis is to identify materials and crystal cut/propagation directions that can provide large values of
electromechanical coupling coefficient K 2 together with zero or low values of TCD (temperature
coefficient of time delay) and PFA (power flow angle). Results obtained from theoretical calculations will
be experimentally verified. (2) Theoretical and experimental investigation of the influence of a thin film of
arbitrary conductivity deposited on the surface of a plate wave device. (3) Measurement of mechanical and
electrical properties of liquids using plate waves and development of a system for identifying liquids based
on their electrical properties. (4) Development of techniques to fabricate devices on plates as thin as a few
micrometers (um) and integration of the resulting acoustic device with silicon substrate, and (5)
Investigation of plate wave propagation in the presence of a biasing electric field and use of this work to
realize devices with electronically tunable characteristics.
Intellectual Merit: The research proposed in this project will produce major advances in the field
of acoustic wave sensors. Devices based on acoustic waves in piezoelectric solids are currently receiving
much attention for use as chemical and biological sensors. A number of different types of acoustic waves
have been investigated for sensor applications. At present, best performance is obtained by using surface
acoustic waves (SAWs) for sensing in the gas or vapor phase, and shear horizontal surface acoustic waves
(SH-SAW) for sensing in the liquid phase. Sensors based on thin plate waves can provide following
important advantages over SAW and SH-SAW sensors. (i) A number of chemical and biological sensors
are based on detecting the change in mass on the sensor surface. For the same operating wavelength, the
mass loading sensitivity of a thin plate device can be greater than that of a SAW or SH-SAW device by
more than a factor of 10. (ii) Acoustic waves in thin plates can provide values of coupling coefficient K 2
that are 5 to 10 times greater than K 2 of SAWs and SH-SAWs. This will produce corresponding increase in
the sensitivity of chemical and biological sensors which operate by detecting changes in electrical
properties of the bio(chemical) coating. (iii) The energy of a plate wave is present on both surfaces of the
plate. Thus one can enclose one side of the senor to protect it from environmental attack while allowing
wave interaction at the other surface. (iv) The thin plate device can be integrated with silicon substrate
which can contain the electronic circuitry associated with the sensor. This will greatly reduce size and cost
of the overall sensor package while simultaneously improving its reliability.
Broader Impacts: Various educational activities will form an important and integral part of this
project. These include: (1) Hands-on-mini course for junior and senior year high school students, (2)
Seminar and laboratory course for freshman students in our engineering college, (3) Opportunity for
undergraduate students to participate in research through the REU program, (4) Establishing partnerships
with high school teachers through the RET program, and (5) Graduate student mentoring. In selecting
student and teacher participants, special efforts will be made to seek qualified candidates from groups
underrepresented in science and engineering. As a result of previous NSF grants, the PI has mentored
eight REU students, out of which two were female students and two were male students belonging to
groups currently underrepresented in science and engineering.
Successful completion of the work proposed in this project will lead to the development of fully
integrated, low cost, high performance sensors. Sensors play an important role in all facets of our lives
such as environmental monitoring, pollution control, counter terrorism measures, biomedical devices, etc.
The research proposed in this project has many beneficial effects for society and will contribute towards
improving the quality of our lives, health, and environment.